School Scienc and Natural History Leadership Institute

Twenty elementary teachers will gain leadership skills, strengthen their science background, and become acquainted with the telecommunication technology in a three-week summer 1989 leadership institute. The twenty teachers will be selected, for the most part, from those who have implemented the School Science and Natural History Enrichment Project (SSNHEP) in their own classrooms and have an interest in working with their peers to expand the program. This previously funded project enabled tachers to implement an environmentally based science program in their schools in which they made excellent use of local resources, expertise and unique natural phenomena. This institute will involve principals for the first three days of the program in order to build administrative understanding and support for an activity-based, outdoor science-oriented program. Teachers and principals will make a team commitment to implement the SSHHEP by planning and implementing local workshops. Adequate time for planning and for follow-up support of peer teachers who will initiate the program in their schools will be contributed by the schools. During the school year, 1989-1990, the twenty lead teachers will plan and implement at least two local inservice workshops for at least 6 teachers each in order to introduce the program in their classrooms. Through private funding, the institute will provide an overview of telecommunication as a tool for education and involve participating teachers in the development of an instructional program for broadcast during the school year. Project staff will provide resources and consultant assistance to these lead teachers during the school year. The group will reconvene for one week in the summer of l990 to review and share the year's activities and make plans for continuation. The long range goal of the institute is to identify and motivate potential leaders in elementary science education in the state of Maine. This collaboration of a professional society, a university (College of the Atlantic), school districts, state education department and the private sector make this a project worthy of possible replication. An amount equal to 30% of the NSF request has been contributed by the above collaborators.